Research Initiation Award: Fatigue Wear, Material Transfer, and Surface Enhancement of Polymers and Polymer Composites

The wear of polymers and polymer composites will be studied in order to further develop a model for wear debris generation. Transfer film formation will be followed and related to surface preparation techniques. These will be designed to impart controlled surface features. The wear by surface cracking for sliding against very smooth counterfaces will also be studied. The findings will be related to a model based on two- dimensional non-Hertzian stress systems.